Brushless Synchronous Motor Drive with Induced DC Field

9360235 Vithayathil Adjustable speed 3 phase AC motor drives are now preferred over DC motor systems, for many industrial drives and battery powered cars. This is because, static inverters, with adjustable frequency and voltage, are reliable and economical. Induction motors provide brushless operation. But they have slip and a relatively low lagging power factor. Synchronous motors have better power factor and no slip. They are also better for vector control, for good dynamic performance. But brushless, exciterless synchronous motors have permanent magnet rotors and so lack easy adjustability of flux and power factor. We propose to do the feasibility research on an AC motor drive, for which the principal investigator has obtained a US Patent. The machine is synchronous, but brushless and does not need exciter or permanent magnets. The stator creates an auxiliary rotating field, besides the main field. The auxiliary field rotates at a different rpm and serves to induce AC currents in the rotor circuit. This AC is rectified by means of rotor mounted diodes, to provide DC excitation, for synchronous running with respect to the main field. The field is adjustable from the stator side. The program covers the fabrication of both the motor and the matching inverter. ***